Collaborative Research: Measurement of P&S Velocities in Mantle Wedge Peridotite at High Pressure and Temperature

9614233 Holloway The PIs propose to study the effect of water on seismic properties of mantle subduction zones by providing experimental data needed to model this regime. The proposed research will involve experimental measurements of sound velocities using their newly developed controlled-pulse- transmission technique on artificially hydrated, natural mantle peridotite at high pressures and temperatures. ***